Dynamics of Polynomial Diffeomorphisms

Some of the most impressive recent work in dynamical systems has been
an outgrowth of the study of dynamics in one complex variable. The
fundamental assumption motivating this proposal is that complex
methods have an important role to play in dynamics when the number of
dimensions is greater than one as well. The subject of this proposal
is a particular "model family" of dynamical systems, the polynomial
diffeomorphisms in two complex dimensions. The complex Henon
diffeomorphisms which are a notable special case. These are perhaps
the simplest invertible holomorphic dynamical system with interesting
dynamics. One of the lessons of dynamics in one variable is that
there is a range of dynamical behaviors starting with expanding maps
and continuing with Misurewicz maps, semi-hyperbolic and
Collet-Eckmann maps. The two variable analog of the expanding
property is hyperbolicity. This proposal is focused on understanding
the two variable analog of the semi-hyperbolic condition which we
call quasi-hyperbolicity. In one variable these conditions are
related to the recurrence properties of critical points. In two
variables the notion of critical point needs to be replaced by other
concepts such as regularity of stable and unstable manifolds. An
interesting example of quasi-hyperbolic diffeomorphisms are real
polynomial diffeomorphisms of maximal entropy such as limits of
horseshoes in the real Henon case. Though several questions about the
behavior of such diffeomorphisms have been answered in previous work
a number of open questions remain.

The introduction of the computer has increased the usefulness of
simple deterministic mathematical models in a number of sciences. An
illustrative example is the logistic map which can be used to
describe the behavior of a single insect population in successive
years. When the mathematical model is linear there is a well
developed underlying theory. When the model is non-linear there are
important theoretical questions which we have not yet been able to
address. Recently mathematicians have made important breakthroughs in
understanding the logistic map. One technique which proved essential
was the consideration of an associated complex dynamical system. My
proposal addresses some of the problems of using similar complex
techniques when the system involved has dimension greater than one
(for example when there are two interacting populations.)